Our Nutritional Environment

This program will offer 24 high school juniors and seniors a research oriented, three week summer program using as its central theme, Our Nutritional Environment. Students will select non-commercial plants and invertebrate animals from the local area and determine the role of these organisms in their community and their nutritional value. The sociological and philosophical implications of science in general and this type of research in particular will be presented as a continuous and interwoven component. Completion of this program will provide the participants with a complete research experience, starting with the development of a research proposal and continuing through collection of data, forming conclusions, and preparing research results for a scientific audience. The final product is presentation or publication of a paper. The research project will be undertaken and completed i the context of ethical and social awareness. Providing the participants with cognizance of their potential as scientists and the many careers available to scientists will be an additional outcome.